Doctoral Dissertation Research: Agricultural Change and Its Implications for Land-Cover Transformations in Madagascar

SBR-9508426 Billie Lee Turner II Rheyna Laney Clark University Dissertation Improvement Research: Agricultural Change and Its Implications for Land-Cover Transformations in Madagascar The primary objective of this dissertation improvement research is to identify and explain the paths of agricultural change occurring in agrarian landscapes adjacent to natural reserves in Madagascar, and to associate these trajectories of change with spectral, spatial, and temporal land-cover patterns identifiable with remotely-sensed imagery. These forces and trajectories are identified with surveys and field work within representative villages in these landscapes. They are then linked with the use of remotely-sensed imagery and GIS to their general patterns of land-cover consequences within not only the cultivated areas but within the adjacent reserves. The research will contribute to an understanding of the local-level dynamics that give rise to particular paths of agricultural change and their land-cover impacts. In addition the research assesses the role of one kind of institutionalized protected area (natu re reserves) on agricultural change--a role that has not been well developed within the agricultural change literature.